Understanding Canted Ferromagnetism and Related Phenomena in Metal (II) Tetraazaporphyrins

Dr Yee is supported by the Inorganic, Bioinorganic and Organometallic Chemistry Program to study the unusual magnetic properties of tetraazaphorphyrin-based molecular magnets. The first goal of the program is to discern how the competition between zero-field splitting and interstack coupling effects magnetic properties of OETAP complexes. These studies will center on the differences of manganese and iron OETAP complexes since the manganese complex is spin-glass-like while the iron complex exhibits a canted ferromagnetic state. The second major goal of the program is to examine how changes in the size or nature of the peripheral alkyl groups of the porphyrin effect antiferromagnetic interstack coupling. Proposed studies will utilize SQUID magnetometry and Mossbauer spectroscopy. The study of molecular magnetism will provide a rational approach to the production of ordered spin systems that display net magnetism in the absence of an applied field. Further, understanding magnetic behavior of new materials could lead to the development of new magnetic media for information storage.